Atlanta Conference on Science and Innovation Policy

The proposal will provide financial assistance for a research conference at the Georgia Institute of Technology. The Atlanta Conference on Science and Innovation Policy provides an important scholarly conference for the developing Science of Science and Innovation Policy community and fosters the intellectual development and policy relevance tools, datasets and methods. The conference advances the interest of NSF’s SciSIP conference by providing feedback for funded Principal Investigators and helping disseminate information about the program.